Computational Algebraic Geometry

Tropical geometry, the study of piecewise-linear spaces which
represent algebraic varieties over a field with a non-archimedean valuation;
phylogenetic algebraic geometry, the study of unirational algebraic varieties
derived from statistical models on phylogenetic trees; maximum likelihood
degree, which is a new invariant of a variety in projective n-space with a
distinguished divisor defined by the intersection with n+2 hyperplanes;
toric varieties arising from matroids, which is aimed at resolving basic
open questions at the interface of combinatorics and commutative algebra.

The field of computational algebraic geometry is concerned with the
algorithmic study of solution sets to systems of algebraic equations,
and with the development of polynomial models in science and engineering.
For instance, many widely used statistical models in biological sequence
analysis can be specified by polynomial constraints. Phylogenetic algebraic
geometry concerns this algebraic representation and its implications for the
construction of maximum likelihood trees. The ensuing interaction between
algebraic geometry and phylogenetics is a healthy two-way street:
computational biologists may benefit from new algebraic tools,
while algebraic geometers find a rich source of new problems
concerning objects familiar from classical projective geometry.
The maximum likelihood degree of a statistical model quantities
the algebraic complexity of a fundamental problem in estimation,
namely, to identify the parameters of a model which best explain the
observed data. The work in tropical geometry will solidify the
foundations of this new field, and it will lead to new methods
for solving systems of algebraic equations numerically.